Design Strategies for Bright, in Situ Illuminated, Lanthanide Chelates

In this project, Professor Eszter Boros of the Department of Chemistry at the University of Wisconsin-Madison is developing new lanthanide coordination complexes that emit yellow and red light and that can safely and precisely illuminate biological processes in cells and the body. If successful, these molecules could provide non-invasive approaches to diagnosing disease. By designing probes that generate their own light internally, this work could overcome major limitations of existing imaging tools. In addition to advancing our knowledge in the chemistry and the light-emitting properties of lanthanide complexes, this work may have implications for improving healthcare technologies. Furthermore, the project will provide interdisciplinary training for students at the interface of chemistry, biology, and medicine, and will support outreach activities that engage diverse student populations in STEM through an audio podcast focused on emerging discoveries in lanthanide chemistry.

This research focuses on the design and synthesis of discrete europium-based coordination complexes as next-generation optical imaging agents. Lanthanide sensitization can be achieved with a large pseudo-Stokes shift yet requiring short-wavelength excitation which cannot penetrate tissue. To overcome this fundamental limitation of short-wavelength excitation, Professor Eszter Boros and her research group will develop “self-illuminating” Eu3+ chelates that incorporate Cherenkov-emitting radioisotopes as short-wavelength photon producers. The resulting intramolecular Cherenkov radiation energy transfer (CRET) will allow for concerted delivery of the photon source and the red-emissive lanthanide complex. In parallel, they will synthesize and study a new class of Eu2+ complexes with tunable ligand fields to achieve bright, red-shifted emission with high quantum yields suitable for biological imaging. Together, these efforts could address key challenges in lanthanide-based non-invasive imaging in living systems, while advancing the fundamental understanding of Eu2+/Eu3+ coordination chemistry and photophysics in biological media.